SBIR Phase I: High Performance Very Broad Band Seismometerswith Magnetohydrodynamic Feedback

*** 9761485 Abramovich This Small Business Innovation Research (SBIR) Phase I project will explore magnetohydrodynamic feedback and spectrum translation to create a new class of very broad-band, wide dynamic range seismometers. The new instruments will be based on molecular electronic technology (MET), with force balancing feedback provided by the magnetohydrodynamic effect on the electrolyte, which serves as the inertial mass. Radical noise reduction will be achieved via the use of signal modulation to produce spectrum translation. Phase I will develop an instrument equal in performance to the best traditional-technology seismometers while retaining desirable features of MET seismic sensors, e.g., low cost, low power, ruggedness, and suitability for volume production. These seismometers are expected to find commercial applications wherever top-of-the line traditional seismometers are currently employed. Their low cost makes them particularly attractive for use in large sensor network and education applications. ***